Research Experiences for Undergraduates in Chemistry at Youngstown State University

This Chemistry Division award supports a new Research Experiences for Undergraduates (REU) site at Youngstown State University (YSU). Daryl Mincey is the site's Program Director. The Co-Program Directors are Allen Hunter, John Jackson, Sherri Lovelace-Cameron, and Timothy Wagner. Thirteen faculty will serve as REU student mentors. During the award period (2001-2003), each summer ten students will participate in a twelve-week program. Recruitment efforts will be directed toward students from the Public Private Alliance (PPA) that consists of nine four-year institutions located in Ohio and Pennsylvania. The program calls for five faculty members from PPA to also be involved each summer in the research, thus allowing for the continuation of the research beyond the summer. Most of the faculty are just starting their careers and thus their projects are timely and are supported by various state and national organizations. The research projects offered are in the areas of analytical, inorganic, organic, and physical chemistry. During the program, each of the REU supported students will give a fifteen-minute progress seminar. A poster presentation will be held at the conclusion of the summer program. The YSU Beeghly Center for Education Research will evaluate the program through both formative and summative measures.